Combinatorics in Representation Theory and Algebraic Geometry

Professor Shimozono studies combinatorial structures arising in
representation theory and algebraic geometry. With
Allen Knutson and Ezra Miller, he proved a conjecture of Buch
and Fulton for the torus equivariant cohomology classes of
degeneracy loci associated with an equioriented type A quiver,
which generalizes the Giambelli-Thom-Porteous formula for
determinantal varieties. He will study the equivariant K-theoretic
and cohomology classes of degeneracy loci associated with other
quivers. This research has applications to the Schubert calculus
and the geometry of flag varieties. Shimozono will continue his
research on combinatorial problems arising in the representation
theory of classical and affine Lie algebras and Weyl groups. With
Mike Zabrocki, he has discovered new creation operators for
characters of classical type, which, together with crystal graph
techniques, will be applied to the problem of finding explicit
combinatorial formulae for affine Kazhdan-Lusztig polynomials. He
also plans to continue his study of crystal bases of
finite-dimensional modules over quantum affine algebras, with
applications to branching and fusion multiplicities in conformal
field theories and statistical mechanics.

Shimozono's research on quiver loci is related to some classical
mathematics with current applications. For example, the cohomology
classes of quiver loci may be viewed as polynomials which
generalize the classical polynomials known as subresultants.
Subresultants are used in computer algebra systems to efficiently
compute the greatest common divisor of a collection of
polynomials, and may also be used to find the number of common
zeroes of a pair of polynomials without factoring them. His
research on affine crystal bases involves the study of certain
highly symmetrical graphs with colored edges. The symmetries
exhibited by these graphs appear in many areas of mathematics and
physics, such as in the low-temperature behavior of statistical
mechanical models involving particles situated on a
two-dimensional lattice.